Reliability of Electric Power Network and Grid

Large-scale power outages occurred on August 14, 2003 covering a 10,000 square-mile
area involving 50 million people in more than 10 states in Midwest and northeastern part of this
nation and southern Canada. A number of major centers of population such as Metropolitan
New York were impacted severely causing human inconvenience and miseries of all kind while
power recovery effort gradually took effect. The disaster may have been caused by, as many
suspected, malfunction of a critical power component under excessive power demand in the
summer heat. It might take some time, however, to identify the exact cause of this worst power
blackout in the history of USA.
The objective of this exploratory research is to acquire and archive potentially perishable
data related to the outages. We are particularly interested in the way in which the outage initiated
and cascaded throughout the power grids. The data to be collected will span a spectrum of
mechanical, electrical and socio-economic impact with significant emphasis on the data that are
needed for grid reliability evaluation.
PI of this proposed research studied extensively on reliability of utility networks and
power grids to resist seismic conditions under which similar outages could happen. In these
studies, transmission networks and grids, involving Los Angels Department of Water and
Power.s (LADWP.s) and Memphis Light, Gas, and Water.s (MLGWP.s) systems were used as
living laboratories. These studies were based upon the analytical simulation of power flow, using
Electric Power Research Institute.s Interactive Power Flow (IPFlow) code, which is the industry
standard, for realistic performance evaluation of Western Electric Coordinating Council.s
(WECC.s) power grid and of Memphis transmission network.
Initially, the study was motivated by an accident in August 1996 in Oregon, in which a
tree came into contact with a segment of a high-voltage aerial power line, disabling its
transmission capability. The result was a wide-spread blackout in several states and cities,
including part of Los Angeles. In fact, the research demonstrated that a local disturbance and
instability can propagate almost instantly far away to remote locations. The research became
more seriously significant after the tragic September 11 event from homeland security point of
view and has just added another layer of relevance since the August 14, 2003 power outage.
This is because disablement can be man-made, accidental or malicious, and cause a devastatingly
negative impact on socio-economic welfare of the directly affected regions immediately and of
the nation in the long run.
PI.s experience and expertise plays a crucial role in identifying the data that are
indispensable and therefore should be collected for the ensuing reliability analysis of the physical
components, utility networks and power grids. Since the preparedness for the emergency of the
utility organizations, individually and in collaboration, is critical in minimizing the consequence
of outages, the data will include the record of implemented organizational response processes.
Beyond these, data are needed to record how transportation, water and other lifeline systems and
business/industrial sectors behaved under the interruption of power supply. The estimated
economic losses will be updated as more information emerges, although the estimation will be
somewhat speculative within the first year after the event.
Broader Impact of this research is that it will contribute to significant scientific advances
in predictive systems analysis methods and protective countermeasures, and it will benefit tens of
millions of customers of the utility systems, and local, regional and national economy.
Pedagogically the research project is truly beneficial in training and encouraging junior
researchers to become more interested in the electric power related research where lack of
research talents has been conspicuous.